Planning Meeting/Workshop - National Coalition for Technical Training

9526015 Brett The workshop will bring together leading regional and state user services groups to discuss the feasibility of leveraging their individual activities into a coherent national effort. The purpose of the Coalition would be to develop and provide systematic training and support for classroom personnel in using a suite of public domain applications and databases on the Internet as well as to serve a clearinghouse function to identify schools and teachers in different parts of the country (and the world) capable of and interested in participating in collaborative projects. The workshop involves planning of future NSF support for the development of a training infrastructure in this important are.